CSHL Conference on Molecular Genetics of Bacteria and Phages; Madison, Wisconsin, August 20-25, 2002

The Molecular Genetics of Bacteria and Phages Conference, traditionally held at Cold
Spring Harbor and now being held in alternate years at the University of Wisconsin in Madison
and at the Cold Spring Harbor Laboratory, is a central forum for the presentation of new results
in prokaryotic molecular genetics. On the order of 200-400 participants attend, representing
laboratories throughout the world, and most present either short talks or posters. Its breadth
makes it an important focus for the exchange of information in this era of scientific
specialization. Topics covered include fundamental work on bacterial replication,
recombination, repair, transposition, transcription, control of gene expression, translation,
signalling, heat shock, protein folding and secretion, cell development and division, and
pathogenesis.
For many graduate students and postdoctoral fellows, this is the first large meeting at
which they have an opportunity to speak. Due to its highly interactive nature, the meeting
provides an important opportunity for these young scientists to meet and talk to the senior
scientists they know from the literature. In response to the large numbers of students who attend
the meeting and the diversity of topics covered, established and distinguished scientists are
invited to chair each session. This strengthens the meeting because each chairperson gives a
short introduction in which he or she summarizes some of the key facets of the field to be
covered and provides a conceptual framework for the major questions that the talks will address.
As an additional benefit, publicizing the judiciously chosen chairpeople and session topics in
announcements of the meeting, encourages the submission of abstracts in exciting new areas and
stimulates attendance by a larger constituency